Catalytic Oxidation with Ozone Studied with In Situ Laser Raman Spectroscopy

Prof. Oyama will continue studying the low-temperature catalytic oxidation of organic compounds with ozone over transition metal oxide catalysts. Oxygenate and aromatic compounds, such as ethanol and toluene, will be oxidized competitively over Mn or Mo oxides supported on zirconia, titania, alumina and silica. The various supports will provide different reductibility - thus electron-accepting capability-to the oxides. The kinetics and mechanism of reactions, and the key steps determining selectivity will be studied by isotopic distribution. The adsorbed intermediates will be investigated by in situ laser Raman spectroscopy. The chemistry of oxidation with ozone will also be studied in separate flow reactor at high flow-rates on other oxides of interest. Oxides of Ti, V, Cr, Fe, Co and Ni, wash-coated on open-cell foam substrate, will be tested in terms of activity for low-temperature catalytic oxidation of VOC model compounds with ozone.